Modern Optical Instrumentation and Holography Laboratories for a New Undergraduate Program in Applied Optics

The Physics Department will purchase optics equipment for six new undergraduate laboratories established to support a newly instituted Bachelors Degree in Applied Optics. Particular emphasis is placed on laboratories for Optical Instrumentation and Holography.